Continuing Study of Almost Intransitive Properties of the Large-Scale Wintertime Circulation: Observational and Theoretical Studies

This project will continue studies of large-scale planetary flows in order to determine their statistical properties. A combination of theoretical, diagnostic and modeling approach will be used to establish the source of observed bimodality distribution in planetary wave amplitudes. The main focus of the observational work will be the Southern Hemisphere flows and an intercomparison with previously obtained Northern Hemisphere results. The theoretical and modeling work will explore behavior of planetary waves in simplified, minimal models of the atmosphere and compare the properties of such models with the general circulation models of the atmosphere. This work is important because it will enhance our capability to make extended range climate predictions.